Engineering Research Equipment: A Slow Scan CCD-based Video System for Image and Diffraction Analysis

Harry Atwater Abstract The acquistion of a quantitative high-resolution video imaging system is proposed. The system will be used in conjunction with existing transmission electron microscopes for (i) atomic-scale imaging of thin films and nanoparticles, (ii) energy-filtered imaging of thin films and nanoparticles, (iii) quantitative electron diffraction nmeasurements,a nd (iv) facilitating the teaching of electron microscopy and microanalyis of materials. ***